PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research fellowship awarded to Sheel C. Ganatra is "Symplectic topology and Fukaya categories via Surgery, Sheaf Theory, and Representation Theory." The host institution for the fellowship is Stanford University, and the sponsoring scientist is Dr. Yakov Eliashberg.